Neural Networks for Selecting Resource-Constrained Project Scheduling Heuristics

Resource-constrained project scheduling with cash flows is difficult due to the large number of possible combinations of tasks which can generate feasible schedules. This had led to the evolution of a variety of heuristic procedures that can aid the generation of a near-optimal schedule. Choosing the best heuristic is difficult because it depends upon the particular problem; furthermore often a combination of heuristics is better; finally since circumstances can change, real-time adjustment of the scheduling solution is important. Hence the proposer will analyze the feasibility of using neural networks in the selection of the best heuristic algorithm for the resource-constrained project scheduling problem.